New Technologies to Re-Engineer Materials Handling on Construction Sites

9622308 Tommelein The main objective of this research is to develop a methodology and computer tools for field engineers to manage the flow of materials and equipment on site, in order to raise the overall productivity of the construction process. Planning the temporary storage layout and handling of materials greatly affects a project's overall productivity. It therefore critically determines the contractor's profitability and thus his competitiveness in the global market place. The advent of new technologies (including wireless electronic data exchange, laser-based spatial positioning systems, and palmtop computers aka). Personal Digital Assistants or PDAs combined with new management philosophies (including just-in-time vs. just-in-case and lean production) open up a wide range of possibilities to improve the construction materials management process. Accordingly, this research plans to investigate their applicability and test how they can be used to achieve the greatest improvements.